Supplement: Waves and Chaos in the Electrodynamics of Plasmas

This project concerns itself with the electrodynamics of waves and their interactions in magnetized plasmas. The proposed research places emphasis on new approaches and understanding of nonlinear plasma electrodynamics phenomena associated with coherent versus chaotic dynamics. This encompasses three interrelated, major studies: (1) Chaotic dynamics and diffusion; (2) Wave induced chaos and spatial diffusion; and (3) Space-time chaos from instability. The major objective of the theoretical work of this project is the modeling and understanding of the above mentioned phenomena as they relate to new and potentially significant engineering and scientific applications. These include plasma heating, modification of transport, and control of instabilities, as for example in energetic plasmas for coherent electromagnetic sources, in fusion energy research, in ionospheric and space propagation studies, and in fluid dynamic flows. Wherever possible and appropriate, relevant and ongoing experimental work is used to test and evaluate the analytical results. The proposed work seeks to emphasize the advance in our basic understanding of plasma electrodynamics that may transcend current experiments and applications.